Reconfigurable Architectures with Shift Switching for Novel Parallel Arithmetic Schemes

This research will investigate a novel VLSI arithmetic design approach using reconfigurable architectures with shift switching, aimed at achieving an innovative design methodology which could lead to a substantial improvement on both speeds and areas for several arithmetic devices including parallel counters, parallel compressors, parallel multipliers, precharged CMOS adders/comparators, prefix parallel counters, as well as elementary function evaluations. The proposed technique will employ enhanced reconfigurable buses, i.e., buses containing shift switches with buffers properly inserted. It possesses the following new features. First, when specified digital signals are propagating through shift switching buses, the desired modulo operations can be performed directly, which simplifies the traditional model of this basic arithmetic computation. Second, after passing through each shift switch, the state signals are inverted alternatively in two mutually inverted forms (n and p), which minimizes the load of transistors and maximizes the speed of circuits. The research will focus on the development of enhanced reconfigurable bus-based VLSI schemes for important arithmetic operations. The goals are to investigate: 1. shift switching parallel compressors and conditional compressors; 2. efficient partial product reduction schemes; 3. application-specific array processors for realization of some optimal arithmetic algorithms; 4. various shift switching parallel counter schemes and their applications; 5. shift switching with precharge CMOS domino logic and its applications in designing arithmetic devices and asynchronous arithmetic devices.